STTR Phase II: Autonomous Landing of Small Unmanned Aircraft Systems onto Moving Platforms

The broader impact/commercial potential of this project will enable Unmanned Aerial Systems
(UAS or drones) to safely and reliably operate from moving vehicles and moving vessels at sea.
There is an immediate need for this capability in many industries. In commercial fishing, drones
will replace manned aircraft for fish-finding operations, radically reducing cost and risk. In maritime
security, drones will provide surveillance around ships, including locating a “man-overboard” in
time to save the person’s life. In the oil and gas industry, drones will provide rapid-response to oil
spills by mapping the location and extent of the oil slick, limiting the environmental and economic
damage. In hydrographic surveying, drones will identify and geo-locate navigation aids, at a
fraction of the time and cost of current survey methods. In commercial shipping, drones will
inspect and protect shipping vessels while they are underway. In the transport industry, drones
will delivery packages the “last mile” from a delivery truck to a customer’s door. In law enforcement
and border security, drones will operate from moving patrol vehicles while officers remain safe
and mobile in the vehicle. These applications are currently difficult or impossible, but will become
radically safer and easier with the proposed technology.

This Small Business Innovation Research (SBIR) Phase 2 project will advance the current state
of the art in UAS/drone autonomy, to enable reliable drone operations from moving vehicles and
moving vessels at sea. Shipboard landing is extremely difficult, due to the heaving and rolling of
the ship deck, potential high winds, and the high precision control required during landing. Current
drone technology does not facilitate landing on moving platforms; this prevents their use in
maritime operations, and has become the main barrier to commercialization in this sector. The
proposed research will develop a vision-aided relative navigation system that combines precise
air-to-ship observations with onboard sensor measurements to accurately estimate the relative
state between the drone and the ship. These relative state estimates will be used to dynamically
route and control the drone safely on to the ship deck. Technical feasibility of this approach has
been demonstrated during the Phase I project, which included demonstration of the technology
in a relevant environment. The primary goals of the Phase 2 project are to improve system
reliability, expand the operational envelope, and productize our system. The plan to achieve these
goals includes scientific development paired with extensive testing, validation, and demonstration.